Affine Complementarity Systems

9307685 Gowda An affine complementarity system is defined by a finite number of linear equalities, linear inequalities, and complementarity conditions. This project will investigate the theory and computation of affine complementarity systems based on their equivalent formulation as a system of nonsmooth equations and on degree theory. On the theoretical side, the goal is to develop a comprehensive theory covering uniqueness, existence, and sensitivity/stability aspects of these systems. The aim is to present a unified theory for linear, mixed linear, vertical, and horizontal complementarity problems, and affine variational inequalities. On the computational side, the goal is to discover and analyze feasible/infeasible interior point algorithms for solving affine complementarity systems. The research will build on work in recent years which has demonstrated the fruitfulness of nonsmooth-equations and degree theory approach to variational inequalities, complementarity problems, and nonlinear programs. ***